POWRE: Study of Model Equations for Water Waves

This work is funded through the Professional Opportunities for Women in Research and Education (POWRE) program as a Visiting Professorship activity. The investigator will study various model equations for water waves. Based on the investigation of the Boussinesq systems which describe bi-directional waves in a nonlinear dispersive media, the investigator will study theoretically and numerically the generalized systems which include one or more of the following factors a) the external forcing which come from the bottom topography and the surface pressure. b) more accurate (higher-order) systems; c) weakly two-dimensional uni-directional waves (KP-equations); with or without external forcing. d) weakly two-dimensional bi-directional waves, with or without external forcing.